MRI: Development of Tomographic Imaging Instrumentation with Terahertz Radiation

Development of Tomographic Imaging Instrumentation with Terahertz Radiation
A Project Summary
The Center for Terahertz (THz) Research at Rensselaer Polytechnic Institute is seeking NSF
support for the development of a THz wave tomographic imaging system that will provide the
first-ever THz capability to produce real-time, large-scale, long-distance, three-dimensional (3D)
images. Like conventional X-ray CT systems, the THz system will provide 3D mapping of
structured objects, but without subjecting biological tissue to harmful radiation. In addition, it
will offer important spectroscopic information that conventional systems cannot supply. The
instrumentation will provide real-time images across an ultra-wide frequency band, extending
from 100 gigahertz to 10 terahertz, at a variable frame rate from single-shot up to 1,000 frames
per second, and it will be able to non-invasively image moving objects, turbulent flows, or
explosions.
THz research is central to Rensselaer's strategic plan because it is a key enabling technology for
both of the university's major focus areas, information technology and biotechnology.
Rensselaer has strongly supported the formation of the THz Center, with Dr. Zhang as founding
director. The university is providing 5,000 square feet of laboratory space, substantial financial
support for renovation and equipment, and three new faculty positions in the next four years,
with a concomitant increase in graduate and undergraduate researchers.
Intellectual merit: The proposed instrumentation will be an important step forward for THz
science. During the last decade, Rensselaer's team has been exploring this previously hidden
portion of the electromagnetic spectrum, which is located between the infrared and the
microwave bands. Basic THz science and technology is in its infancy, but as it improves, it has
the potential to trigger transformational advances that will impact economic development and
quality of life at every level. Examples of interdisciplinary fields that could gain important new
instrumentation include homeland security, biomedical research, communications, environmental
monitoring, agriculture, and forensic science.
Broader impact: Successful development of the equipment will have a broad impact. In recent
years, worldwide excitement about this field has grown exponentially, as evidenced by an
expanding number of research groups that have published more than 1,400 scientific papers on
THz science since 1990. During the last several years, scientists and engineers from 75
universities, companies, and clinics have visited Rensselaer THz-related programs, and
Rensselaer's team has helped scientists from 18 countries learn how to use THz sensors. This
new instrumentation will be a key enabling technology for the THz Center, providing new
research capabilities for an interdisciplinary group of Rensselaer faculty, postdoctoral associates,
and graduate and undergraduate students, as well as for visiting scientists and external
collaborators. It will be used to test numerous advanced sensing and imaging concepts in the
THz frequency range, with immediate concentration on homeland security and a longer-term
interest in biomedical applications. Jefferson Laboratory, UC Santa Barbara, and Rensselaer
have proposed creation of the National THz User Facility, and this system would be at the heart
of one of the user nodes. Based on past experience with Rensselaer's THz research, the
instrumentation is also expected to provide a model for systems that will be developed in
laboratories around the world.